RUI: Photoionization of Closed Shell Atomic Configurations

This research involves computational studies of the photoionization of neutral atoms and positive ions of interest in astrophysical plasmas and in inertial and magnetic confinement fusion devices.